Digital Government: Responding to the Unexpected

EIA-0215588
Paul Rosenbloom
University of Southern California

Digital Government: Responding to the Unexpected

This workshop will explore the technical and social research issues associated with unexpected events. These are occurerences, man-made or natural, for which prior planning has not been done, and formal response processes have not been agreed upon or established. In such cases, virtual temporary organizations must be created quickly, to share and coordinate data, people, and resources. Attendees will include engineers, emergenccy response experts, computer and information scientists, and social/organizational science researchers.